Long-Term Observations: Development of a High Spectral Resolution Lidar for Long-term Unattended Measurement of Arctic Clouds and Aerosols

9910304
Eloranta
Abstract

This proposal is to build an improved version of a High Spectral Resolution Lidar (Laser Radar), test it and then deploy it at a site near Prudhoe Bay, Alaska. The objective is to provide a long term record of Arctic cloud and aerosol variables. The scientific goals include observations of a full annual cycle of cloud properties; provide a quantitative assessment of Arctic haze; and identify pollution sources.